Dynamic Calculus

An expert fluid dynamicist at Boston University will develop instructional modules, which incorporate ideas from modern dynamical systems theory into the standard introductory calculus course. The purpose of this project is to augment the calculus with topics of current research interest. Materials can be introduced early in a calculus sequence so that students receive early exposure to topics of contemporary research interest in mathematics, computer experimentation in mathematics, and exciting mathematical visual images. During this one year planning grant several modules which show how certain topics in dynamics may be integrated into calculus, and the role of 'dynamical calculus' in science will be developed. Over one third of the project's cost will be provided by Boston University.